Quiet-time Geomagnetic Field Variations , Sq in Antarctica

This project, which is partially supported by a fund transfer to USGS, will collate magnetometer data collected over the past 33 years (since the IGY) at 27 different sites in Antarctica. The purposes of the investigation are: 1.. .To search for a response of the ionospheric E.region current system to the development of the annual ozone hole. This is expected since the ozone controls stratospheric warming and consequently the thermal expansion of the atmosphere, which has a strong effect on upper atmospheric currents;. H. 2.. .To establish hemispherical differences in magnetic field variation behavior;. H. 3.. .To evaluate the equivalent south polar region current systems for geomagneticly quiet days; and. H. 4.. .To determine the upper.mantle Earth electrical conductivity profile beneath the antarctic continent.. H.